Theoretical Studies of Rotating Trapped Atomic Gases

This proposal describes a theoretical study of the rotational properties of clouds of ultracold atoms.
Building on his previous work, the investigator will explore several topical subjects, with the fol-
lowing four objectives. (1) He will calculate the topological structures which will form in a rapidly
rotating gases of spin-1 bosons in the presence of magnetic fields. (2) He will determine the kinet-
ics of spinning up small clusters of atoms at the nodes of an optical lattice. (3) He will produce
a practical scheme for creating fields which couple to neutral atoms in the same way that the
electromagnetic fields couple to charged particle. (4) He will study interference between rotating
clouds and demonstrate that an interference experiment can distinguishing condensed and strongly
correlated rotating states.
These projects are motivated by both interest in fundamental physical properties of these cold
gases [topics (1), (2), and (4)] and by a desire to produce experimental protocols to create and
measure exotic states of matter [topics (2), (3), and (4)]. Topic (1) addresses the basic ground
state properties of clouds of rotating atoms. Topic (2) allows the study of fundamental questions of
energy and entropy transfer in isolated systems, while possibly providing an experimental pathway
to producing analogs of quantum Hall effects. Topic (3) is aimed at producing a valuable tool for
exploring vortex physics, quantum Hall effects, the pinning of vortex lattices, and the interplay
between lattices and quantum Hall effects. Topic (4) studies the basic coherence properties of both
condensed and correlated states, and provides an experimental strategy for distinguishing these
states.
The investigator will use an array of analytic and computational techniques, related to those
used in previous projects. These include lowest-Landau-level calculus, field theory, variational
methods, numerical exact diagonalization, and numerical Monte-Carlo.